Materials Discovery through Novel Nanocomposite Design

NON-TECHNICAL DESCRIPTION: This project is seeking to further the basic understanding and development of new 2-phase nanocomposites to obtain enhanced or novel multi-functionality. Junior researchers (undergraduate and graduate students) and high school teachers are also engaged in the research. A partnership with Dr. Judith Driscoll at the University of Cambridge and cooperation with Dr. Quanxi Jia of Los Alamos National Laboratory enhances this project and the experiences of the students. The outcomes could positively impact areas such as thin film solid oxide fuel cells (SOFCs), thin film solar cells, nanoionics, and memristers. Findings are being integrated into Materials Science and Engineering (MSE) courses. The research team is involved with several outreach programs focused on inclusion in science and engineering.

TECHNICAL DETAILS:
This project focuses on a unique 2-phase vertically-aligned nanocomposite (VAN) approach which provides a novel platform for materials discovery and design. Combining the properties of the two phases, VAN films can provide improved and/or new physical properties in comparison to single layer or multilayer films. The team is demonstrating several remarkable functional enhancements as well as interesting spontaneously ordered structures (nanocheckerboards) and unprecedented levels of strain in thick films. In particular, the major preliminary findings are that (1) an important ferroelectric material can be made to work well at several hundred degrees above its normal operational temperature; (2) tunability in functionality (e.g., low field magnetoelectric property, ferroelectric property, etc.) can be achieved in well-designed VAN systems; (3) unique VAN structures with unprecedented electrochemical properties have been implemented in thin film solid oxide fuel cells (SOFCs) as cathodes, electrolytes or both. The research activities include understanding the limitations to the growth and ordering, as well as the resulted functionalities; growing new systems and demonstrating new functionalities using the VAN method; and demonstrating device applications using VAN structures. Various characterization techniques, such as high resolution X-ray diffraction (XRD), and transmission electron microscopy (TEM) (with scanning transmission electron microscopy (STEM) and electron energy loss spectroscopy (EELS)), as well as physical property measurements are being utilized in this study. The specific outreach programs included are: on-campus programs -- Woman Engineer Forum and Woman Mentor Program (http://outreach.science.tamu.edu/wise.php), and the Summer School Program (http://losalamos.unm.edu/admissions/summer-bridge.html) at the University of New Mexico (a Hispanic-Serving Institution).